Postdoctoral Research Fellowships in Chemistry

Dr. Erik J. Sorensen has been awarded an NSF Postdoctoral Research Fellowship in Chemistry. Dr. Sorensen received his doctoral degree from the University of California at San Diego under the supervision of Professor K. C. Nicolaou. Dr. Sorensen will continue research at the Sloan-Kettering Institute under the sponsorship of Professor Samuel Danishefsky of Columbia University and the Sloan-Kettering Institute. His postdoctoral research will target the total synthesis of biologically active natural products; in particular, the solid phase synthesis of oligosaccharides and glycopeptides. Successful synthesis strategies combined with mechanistic studies increase our understanding of issues relevant to structural biology. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph. D.s and attract them into meaningful careers in contemporary chemical research and teaching.